Travel: NSF Student Travel Grant for 2023 IEEE North American School for Information Theory

The 2023 IEEE North American School for Information Theory (NASIT 2023) will be held at the University of Pennsylvania in Philadelphia, USA, from June 19th to June 23rd, 2023. This grant provides support for the expenses of school participants from the United States such as graduate students and postdocs. Attendees will benefit by learning from senior colleagues, presenting their own research in poster sessions, and expanding their network with their community. Each award will cover registration, accommodation, and travel.

The IEEE North American School (NAS) for Information Theory is an annual event of the IEEE Information Theory Society; 2023 will be the 15th year the school will have held the event. The NAS provides a supportive environment where foundations for learning and long-term future scientific collaborations are established. NAS delivers interactive education for graduate students in mathematics, engineering, and computer sciences. It presents students the opportunity to meet and learn from senior researchers in academia and industry who present long-format tutorials. Student and post-doc participants present their research results in poster sessions.